Magnetized States of Quantum Spin Chains

9801742 Reich This is an experimental research program designed to characterize magnetized states of quasi--one--dimensional quantum spin systems, and the critical properties associated with the magnetic field--induced T = 0 phase--transitions into such states. The goals of this work are to (i) determine whether magnetized states of spin chains share an incommensurate length scale which is inversely proportional to magnetization as predicted by theory and (ii) to provide an experimental counterpart to the growing body of theoretical results about quantum critical phenomena. This work involves a series of detailed experiments on well- characterized model systems where the spin Hamiltonian can be varied reproducibly through the application of a magnetic field, and where disorder can be introduced in a controlled fashion. A number of different quasi-one-dimensional antiferromagnets will be investigated, including linear chains with spin S=1/2 and S=1, linear chains with bond alternation, and spin ladders. The research involves both graduate and undergraduate students who obtain a broad education in experimental condensed matter physics, from sample preparation through various types of experiments and analysis to the dissemination of results. %%% The goal of this research is to increase the understanding of the fundamental behavior of many-body quantum physics through detailed experimental studies of simple magnetic systems. Quantum spin chains are magnets in which the atomic-scale magnetic interactions are strong only in one direction in the material. This one-dimensionality coupled with quantum mechanics produces systems with novel and beautiful properties where highly sophisticated theoretical concepts can be put to rigorous experimental tests. The research involves both graduate and undergraduate students who obtain a broad education in experimental condensed matter physics, from materials pre paration and a variety of cutting-edge experimental techniques to sophisticated data analysis and the dissemination of results. ***